Mathematical Sciences and their Applications Throughout the Curriculum

9455985 Gutjahr New Mexico Institute of Mining and Technology (New Mexico Tech), Navajo Community College (NCC), San Juan College (SJC) and Sandia National Laboratories (SNL) will form a coalition to develop and implement innovative approaches to mathematics education across the curriculum. An advisory board with both academic and industrial representation will guide and critique the programs and other institutions may be used to test the approaches. Faculty from mathematics, physics, geoscience, biology and engineering (materials, electrical, mineral, environmental and petroleum) will develop integrated and coordinated projects. While initiated and tested at small schools, the approach can be generalized to larger institutions.